Pacific Communications Network

This award supports infrastructure for research and education computer communications networking in the Pacific region. It is made to the University of Hawaii Manoa for operation of the Pacific Communications Network (PACCOM). PACCOM is a regional initiative in the Pacific area with the objective of providing common communications services to the academic and research sector of each member nation (currently, the U.S., through the University of Hawaii's computer network, Australia, Japan, Korea and New Zealand). PACCOM circuits and operations support the connections among the research and academic networks of the member countries, but not the networks themselves. NSF, NASA and the Department of Energy share the costs of the U.S. portions of the international circuits, in accordance with the guidelines of the Coordinating Committee for Intercontinental Research Networking. PACCOM circuits terminate in the U.S. at a multi-agency interconnection point at NASA's Ames Research Center in Mountainview, California. The NSFNET node at Stanford University, Palo Alto, California connects to the multi-agency interconnection point.***